An Introduction to Engineering for Early High School Students

The University of Tulsa will initiate a four-week, residential Young Scholars project in Engineering Technology for 35 students entering grades 9,10. The primary component of the program is the summer session in which the scholars interact with departmental faculty, undergraduate students, and representatives from local industry. The hands-on activities will include engineering laboratory experiments, computer workshops, and a design project. The academic year will include follow-up activities designed to reinforce the students' experiences in engineering. Each of the four follow-up sessions will focus on a specific issue in engineering and will include hands-on workshops conducted by industrial mentors and faculty. A major goal of the program is to increase awareness of engineering as a career potential for Native American, minority, and women students. A high priority is given to students with high potential for engineering but with limited prior exposure to engineering or science.